MRI: Acquisition of a High Performance Computer for the C6 System

This Major Research Instrumentation (MRI) award provides funds to create a three-dimensional, full-immersion, synthetic environment, which will be known as the C6. This facility will include a room where all four walls, the floor and the ceiling are projection screens that are capable of displaying back-projected stereoscopic images, thus providing total immersion of the participants. A position tracking system will facilitate tracking of various users inside the space, providing the ability for three-dimensional interactions between the users and their simulations. Audio feedback and haptic display will further enhance the immersive experience.
The C6 will be the only facility of its kind in the United States, one of three in the world. It will enable researchers to gain new understandings of fundamental phenomena with applications in virtual prototyping, product development, human-enhanced dynamic data exploration, immersive architectural modeling, and a wide variety of human-in-the-loop applications. The C6 will also be part of a test bed for cross-disciplinary collaboration across geographically separated virtual worlds, a new field that promises to revolutionize the way engineers and scientists cooperate.